Undergraduate Software Engineering Laboratory Project (SELP)

This proposal aims to provide a software engineering laboratory in its computer science department so that the PI can conduct intensive research in areas of software engineering. The focus will be on an investigation of software engineering tools that are appropriate for students studying software engineering courses. The resulting competitive proposal will center on research for evaluating the appropriate software engineering tools for the laboratory.